Dissertation Research: Changes in Performance Ranking of Seedlings of Coexisting Tree Species Under Different Combi- nations of Light, Mineral Nutrients and Soil Moisture

This is a proposal by Dr. Brenda Casper and her graduate student Mr. Roger Latham of the University of Pennsylvania, Philadelphia. They postulate that differences among tree species in their resource requirements as seedlings may not be responsible for species coexistence in humid temperate forests. The research proposed presents a well reasoned and tightly oraganized plan to evaluate species differences in seedling response to different resources. They will provide a comprehensive analysis of the response to resources of several interacting tree species. Even though limited to seedlings, they will be in a good position to evaluate the possibility of the general hypothesis referred to above, a definite empirical advance from the present situation, as we have many more ideas than data on the questions they address. The context is well developed, and brings together some ideas and results from population ecology, physiological ecology and ecosystem ecology. This integrative approach is much needed and the pilot studies demonstrate that the proposed work will be a good investment. Results will be of importance to forestry and forest management. Dr. Brenda Casper is gaining in stature in this area of ecology as attested by an enthusiastic reception for her most recent publications. The University of Pennsylvania is well equipped to pursue this work to a successful completion. The program recommends funding.